CRI: Wireless Open-Access Research Platform (WARP) - A Scalable and Extensible Testbed for High Performance Wireless Systems

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Wireless Open-Access Research Platform (WARP) - A Scalable and Extensible Testbed for High Performance Wireless Systems
Proposal: CNS 0551692
PI: Sabharwal, Ashutosh
Institution: Rice University

The principal investigators at Rice University will develop the Wireless Open-Access Research Platform (WARP) that promotes a holistic and rapid approach to wireless network design. WARP will be a scalable and extensible platform with three component layers: custom hardware with scalable processing and extensible I/O, platform support packages that provide seamless integration across different hardware components, and an application design environment. They will develop an open-access repository with WWW access that allows WARP users to construct wireless networks, share experiments over the Internet, and implement their networks on their own WARP hardware kits; lastly the investigators will develop a wireless development kit and make it available to other researchers and educators, conduct workshops on use of the WARP system, and host a student exchange program.